Chatter in Rolling

9300158 Wilson The award is for a theoretical and experimental research program on chatter in the rolling of flat products. Theoretical research will include the development of dynamic models of mill structures, and of the rolling process with a realistic characterization of friction, and the coupling of these models to create a model for chatter. This will treat chatter due to negative process damping, mode-coupling, regeneration, and other composite mechanisms in single and multi-stand mills. Experiments on rolling dynamics and chatter using a laboratory-scale mill in combination with data measured on the industrial participants' mills will assist the development and validation of the theoretical models. The research is expected to result in better methods for mill and process design, and to lay the groundwork for more intelligent mill control systems.